IOS Proposal: Collaborative Research: RUI: The role of RNA-binding proteins in C. elegans dendrite morphogenesis

Nerve cells, or neurons, are specialized cells of the nervous system that receive and send signals to coordinate animal behavior. Dendrites are the highly branched structures of neurons that are used to gather sensory information from other cells or the environment. These dendritic branches are critical for the function of the nervous system because a loss of dendrites is associated with deficits in learning, motor control, and sensory perception. The goal of this project is to identify the molecular mechanisms that regulate dendrite development. Dendrite development will be investigated in the simple genetic model organism Caenorhabditis elegans, a microscopic round worm because it is completely transparent, enabling the observation of dendrite development in living animals, and because it is high amenable to genetic manipulation. The research will focus on a genetic analysis of a class of proteins called RNA-binding proteins, which are hypothesized to be important in dendrite development because they regulate genetic messages known as messenger RNAs. This research project is expected to identify several specific RNA-binding proteins, present in worms and other species including humans, which are important for regulating dendrite development. Furthermore, the research is expected to determine the molecular mechanisms for how these RNA-binding proteins regulate dendrites. This research will impact the field of developmental neuroscience because it will provide a better understanding of how the individual neurons make the connections that allow for a functional nervous system that responds to the environment and controls behavior. This project will also have an impact on student training and public awareness; Colorado College and the University of Colorado at Colorado Springs will collaborate on this research project and train several undergraduates and master students, incorporate this research into undergraduate courses, and participate in community outreach programs to illustrate the importance of developmental neuroscience research.